Effects of Hypoxic Training on Respiratory Muscles' Strengthand Endurance

This Science in Developing Countries award will support travel and equipment expenses for Stanley Lindstedt of Northern Arizona University, in joint research with Roland Favier of the Instituto Boliviano de Biologia de Altura, D. Desplanches of France, and Hans Hoppeler, B. Kayser, and G. Ferretti of Switzerland. The project aims to study the physiological adaptation of human respiratory muscles at high altitude. The researchers will examine strength and endurance in these muscles after chronic, high- intensity, whole-body training designed to elicit potent hypoxic, exercise hyperpnea. They will test the hypothesis that respiratory muscles, unlike other engaged skeletal muscles, do not exhibit increased strength and endurance during pure exercise training, but that an additional stress, hypoxia, is also required for this effect. The project will increase understanding of respiratory muscles' adaptability. The Bolivian side will benefit from learning research methodologies in which the U.S. and other participants have developed expertise. The U.S. side will gain from conducting the study with subjects at a high- latitude site.